Organometallic Processes in Organic Synthesis

The focus of this research is the use of Fischer carbene complexes for the synthesis of natural products. The reactions of monoynes, diynes and triynes with carbene complexes will be studied with target molecules including triquinanes, steroids, biaryls and trimeric quinones. Studies aimed at elucidating the mechanism of the benzannulation reaction of carbene complexes with alkynes will also be carried out. With this award, the Synthetic Organic Program is supporting the research of Dr. William D. Wulff of the Department of chemistry at the University of Chicago. Professor Wulff will focus his work on increasing the synthetic utility of the reactions of Fischer carbene complexes with acetylenes. The methodology will be put to use in preparing biologically important natural products.